Acquisition of a SQUID Magnetometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at Clemson University acquire a superconducting quantum interference device (SQUID) magnetometer. This equipment will enhance research in areas which will include inorganic chemistry, magnetochemistry, solid state materials, magnetic nanoclusters, conducting polymers, superconductivity, thermoelectrics, and colossal magnetoresistance. The superconducting quantum interference device (SQUID) magnetometer measures very small currents or voltages and permits precise magnetic measurements of materials.